Curation of Newly Acquired Collections and Computerization at Museum of Geology

The collections in the Museum of Geology of the South Dakota School of Mines (roughly 20,000 specimens, mostly fossil vertebrates) is one of the best representations of the richly fossiliferous terrains nearby. New building space has been allocated to the collection, providing for many years of expansion. Dr. James Martin, curator of the collections, proposes a program of reorganization and improvement, including purchase of steel storage cabinets, leading to eventual computerization of the collection catalog. The collection is actively used for research, public exhibit, and education. The proposed collection improvement program will greatly improve the long-term use of these important fossils. Visiting researchers will have greater access to specimens, and new research collections will be made available more rapidly than was previously possible. The Museum's collections have the potential to become the nucleus for regional research in vertebrate paleontology, and the proposed facility improvement will promote this potential.